Demonstration Project - Model Plan for Video Utilization, Grades K-12

Optimal use of video resources as an integral part of instruction in K-12 public schools has been hampered by the difficulty teachers experience in obtaining video materials that meet specific instructional meeds, and obtaining access to video equipment. A project conducted by the Georgia Department of Education in the late 1970's demonstrated that utilization of instructional television (ITV) materials increased if teachers were given input into the selection and scheduling of ITV programming. Since that time, the use of broadcast in Georgia as a means of resource distribution instead of resource scheduling has given teachers greater flexibility in the selection of instructional video resources. Two limiting factors remain: and inability on the part of the teachers to determine which video meets specific instructional needs and a lack of video equipment in the classroom. The Georgia Department of Education and the Clarke County School System will develop and implement a model project which demonstrates that optimal video utilization is achieved if teachers are provided: 1) easy access to video equipment in the classroom, 2) video materials that support their instructional needs, and 3) instruction in the use of video materials and the operation of video equipment. This project will equip each math and science classroom in Clarke County with a videocassette recorder and television monitor, provide each school with a collection of math and science video resources, and provide teachers with a comprehensive video index, and development in the utilization of video resources. The project will measure and compare level of video usage before and after classrooms are equipped with easily accessible equipment. That quality video materials increase learning has been documented. The potential for improving teaching and learning through the use of new technologies has also been demonstrated. However, the demands of the classroom teachers tend to preclude their taking the steps now necessary to utilize the technologies. This project will provide a model as well as documentation that teachers want and will use improved methods of instruction if unreasonable demands are not made in order to use the methods. The final results can be used as arguments for those making policy decisions for expending more resources on new teaching technologies.